Synthesis and Characterization of Novel Frameworks and Their Inclusion Complexes

9413003 Parise The objective of this work is to make novel microporous thio and thio-oxide frameworks using chemical strategies based on organic templates and by varying the reaction conditions. The proposal will explore the role of cation exchanges as a framework modifier designed to produce materials capable of trapping and controlling the release of gases from sieves. %%% The synthesis and characterization of open crystalline structures possessing regularly spaced pores and channels are of high relevance to industry in strategic areas as varied as chemical separations, catalysis, ion exchange, and ion conductivity. Selected members of this class of materials find applications in areas such as environmental pollution, oil refining, and biosensors for the health sciences. ***